RUI: Combinatorial Fixed Point Theorems, Polytopes, and Fair Division

Abstract for Proposal of Su

DMS-0301129
"RUI: Combinatorial fixed point theorems, polytopes, and fair division"

The investigator's prior work has introduced methods from combinatorial
topology and discrete geometry to the study of certain "fair division"
questions in mathematical economics. The current proposal will support
the development of the mathematics behind these methods and the solution
of several combinatorial questions that have been motivated from economic
problems, including: (1) the development of new combinatorial fixed point
theorems, (2) associated simplicial algorithms, and (3) the study of
minimal triangulations and minimal simplicial covers of polytopes.
Broader impacts of the proposed work include its interdisciplinary
application to negotiation support for group decision making, and the
active participation and training of undergraduates in the proposed
research.

Informally speaking, a "fair division" problem is concerned with finding
methods for dividing a set of goods among players in such a way that
everyone can be satisfied according to some notion of fairness. This
topic is of interest to economists, political scientists, and game
theorists, and it often motivates interesting mathematical questions.
The set of possible solutions in such problems is often a polyhedron of
high dimension (a polytope), and one can usually find a solution by
breaking the polytope into many pieces (tetrahedra), and walking around
the polytope in a way that is guided by player preferences. Thus the
mathematics of how polytopes can be built up from its tetrahedral building
blocks using ideas from three areas (combinatorics, topology, and discrete
geometry) will have direct application to important problems in the social
sciences involving human strategy and decision making.

This award is being jointly funded by the Division of Mathematical Sciences and the Directorate of Social, Behavioral, and Economic Science as part of the Mathematics Sciences Priority Area.